vBNS Connectivity for the John Hopkins University

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a OC-3 connection to the vBNS. Applications include projects in physics, astronomy, computer science, speech processing, earth sciences, library technology and distance education. Collaborating institutions include the University of Wisconsin at Madison, University of Chicago, Princeton University, University of Washington, Fermi National Accelerator Laboratory, Pittsburgh Supercomputing Center and the San Diego Supercomputing Center.